NSF/HACU National Internship Program 2008-2010

The Hispanic Association of Colleges and Universities (HACU) is the recipient of an award for summer internship support. HACU, a national, non-profit organization, has a long and distinguished record of providing summer internship opportunities through the organization’s National Internship Program (NIP). Through the NIP academically prepared students throughout the US and Puerto Rico have received quality internship assignments with various federal government agencies. Students who participate in the NIP are exposed to various career options in the Federal sector that serve to assist them in making informed career choices and solidify career objectives. By partnering with the Federal government, HACU has been able to successfully place over 7,000 students in internships since NIP commenced in 1992. In an effort to continue its collaboration with HACU, the National Science Foundation, a participating government agency for the last six years, will offer challenging assignments that will broaden the exposure of students pursuing careers in science, technology, engineering and mathematics (STEM). These internships create a unique opportunity to assist in the fulfillment of goals aligned with the America Competes Act, and allow the Foundation to actively participate in developing the intellectual capital needed to achieve excellence in STEM education.